Acquisition of a 600 MHz NMR Spectrometer

With support from the Chemistry Research Instrumentation and Facilities: Departmental Multi-User Instrumentation (CRIF:MU) Program, the Department of Chemistry and the Department of Food Science and Technology at the University of California-Davis will acquire a 600 MHz nuclear magnetic resonance (NMR) Spectrometer. The new instrument will enable a user base of over 100 graduate and postdoctoral students to routinely obtain high field spectra with greater dispersion and sensitivity than is now possible. The instrument will make possible such experiments as routine collection of proton-detected two-dimensional NMR data at high field for structural determination of organic molecules, and direct detection of numerous heteronuclei, including quadrupolar nuclei, important for studies in inorganic chemistry. The 600 MHz instrument will provide capabilities to support numerous new faculty appointments that require access to high field NMR and this instrument will allow rational partitioning of NMR time on all available instruments for use in research and teaching of graduates and undergraduates, including well-established minority outreach programs at UC Davis such as the Minority Undergraduate Research Program in Mathematics and Physical Sciences (MURPPS) program and ACS Project SEED.
Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research.